Collaborative Research: SHINE: Machine Learning-Aided Study on Variation of Solar Radio Emission in Past Ten Solar Cycles

The Sun is the primary source of energy for Earth, and its activity can disrupt satellites, power grids, and communication systems through space weather events. Scientists have long used the F10.7 index, a measure of solar radio emission, as a proxy for ultraviolet radiation that affects Earth’s upper atmosphere. However, existing records only provide daily averages since the 1940s and lack detailed information about the solar features that drive long-term changes. This project will reconstruct historical maps of F10.7 emissions using archival solar observations and modern machine learning techniques. The reconstructed data will help scientists better understand the long-term role of solar variability in Earth’s atmospheric changes. This work bridges solar physics, heliophysics, and artificial intelligence/machine learning applications in space weather research. The project involves early-career researchers and will provide research and training opportunities for graduate students.

This project addresses two key questions: (1) How do solar features (e.g., sunspots) correlate with spatially resolved F10.7 flux across solar cycles? (2) What are the century-scale trends in F10.7 flux? To resolve this, this project will combine historical solar observations with modern machine learning to reconstruct spatially resolved F10.7 emissions back to 1907, addressing gaps in solar-climate data. (1) Using Generative Adversarial Networks (GANs), it will synthesize daily F10.7 images (2017–2024) from the Expanded Owens Valley Solar Array (EOVSA) as training outputs, with inputs including century-long Ca II K, Hα, and white-light solar images from ground-based observatories like Kodaikanal Solar Observatory. (2) Concurrently, convolutional neural networks (CNNs) will also correlate these inputs with Dominion Radio Astrophysical Observatory (DRAO) F10.7 flux data (1947–present) to extend the F10.7 record backward. Cross-validation with synthetic extreme ultraviolet (EUV) data from a parallel project will ensure consistency. By resolving spatial features and reconstructing pre-1947 F10.7 fluxes, this work aims to enhance our understanding of the long-term influence of solar irradiance on Earth’s atmosphere and near-Earth environment. The resulting data product will provide the first spatially resolved reconstruction of historical solar radio emission and will support new studies of long-term solar variability and its relationship to solar magnetic activity.